Supercomputing Power for Interactive Visualization

Fuchs This grant supports two additions to the Pixel-planes project. The first is for construction of a high-resolution head mounted display. This display extends the use of Pixel-planes to three-dimensional visualization in large volumes of space, with the user able to walk around and interact with the image. The capability for such visualization allows the meaningful presentation of complex data. The second allows completion of the work originally planned.